Conference: Combinatorics Research School

This award supports U.S.-based participants at the “Escuela Costarricense de Combinatoria (Combinatorial School of Combinatorics)”, held from July 27 to August 07, 2026, at the Universidad de Costa Rica. Drawing inspiration from the influential Encuentro Colombiano de Combinatoria, this research school aims to strengthen the ties between mathematical communities across the Americas and cultivate a collaborative environment for researchers at all career stages. The program features four intensive minicourses led by experts in graph theory, matroid theory, polyhedral geometry, and symmetric functions. In addition to these courses, the school includes plenary talks, contributed sessions, and a poster session designed to highlight the role of combinatorics as a bridge between algebra and discrete geometry.

The 2026 program will include lectures by the following researchers: Federico Ardila, Anastasia Chavez, Emily Heath, and Rosa Orellana. To enhance the training of the next generation of mathematicians, the school also incorporates SageMath computational tutorials and dedicated exercise sessions led by graduate and postdoctoral teaching assistants. These activities are designed to foster international partnerships and provide early-career researchers with the tools and networks necessary for professional success in the global mathematical community. More information regarding the school and its academic outputs will be made available on the official event website: https://escuela.cimpa.ucr.ac.cr.